Center for Quantized Electronic Structures

Research and education programs of the Science and Technology Center for Quantum Structures address a class of artificially structured materials now being explored for use as ultra- miniature electronic or photonic devices. Low-dimensional semiconductor structures that exhibit quantum effects are synthesized using novel atom-by-atom techniques. The focus of the research is to study quantum phenomena in the resulting structures, whose size is comparable to the electron wavefunction in these materials. Unusual physical properties have already been observed in these structures, and revolutionary new devices may ultimately be forthcoming. The Center combines the efforts of specialists in compound semiconductor technology with expertise in crystal growth, advanced processing, and device fundamentals and design, with those of surface chemists and condensed matter theorists to address these issues. Faculty members from five academic departments are involved in the research. The Center offers broad, multidisciplinary experience for undergraduates, graduate students and postdoctoral associates as well as an outreach program for precollege teachers and their students. It also supports visiting scholars, engages in collaborative programs with researchers in industry, national laboratories, and other universities, and is involved in course development in the area of quantum structures. The Center for Quantum Electronic Structures is directed by Professor James L. Merz.